Algebraic and Analytic Aspects of Decentralized and Noninteracting Control Problems (U.S.-Turkey Cooperative Science; Science in Developing Countries).

This U.S.-Turkey collaborative research project involving the University of Michigan and Bilkent University is in the general area of systems and control theory. Project funding will allow the team from Bilkent University to work for various periods of time in the laboratory of Dr. Pramod Khargoneker at the University of Michigan and also allow Dr. Khargonekar a research visit to Bilkent University. The collaborative research will focus on the problem of robust stabilization for a variety of possible modeling uncertainties. The expected theoretical results will yield sufficient conditions for the solvability of robust stabilization problems and constructive algorithms for solving these problems. This project in engineering systems fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Turkey to combine complementary talents and pool research resources in areas of strong mutual interest and competence.